Valle Imperial Mathematics K-8 Local Systemic Change Project

The Valle Imperial Mathematics K-8 Local Systemic Change Project (VIM) is a collaborative initiative between the El Centro School District, the Imperial County Office of Education and San Diego State University, Imperial Valley Campus. It is one part of a broad systemic reform initiative in Imperial County, California designed to implement standards-based instruction in mathematics. This five year LSC project is designed to support all 1,230 K-8 teachers of mathematics in Imperial County through the implementation of high quality, standards-based mathematics materials, instruction and assessment in their classrooms. It focuses on rich standards-based mathematics content, constructivist instructional methods to promote student understanding, research on children's learning of critical mathematical constructs, strategies to increase mathematics achievement in language minority students, and the design and use of appropriate student assessment strategies.

The VIM project design will utilize a strategy to build leadership capacity with a cadre of teachers within the region. Preservice will be restructured at San Diego State University with a focus on strengthening the mathematics background of prospective teachers. Existing teachers will be afforded the opportunities to participate in a program to receive advanced degrees in Mathematics Education. The project will utilize the regional fiber optic network as a means of extending teacher enhancement. An interactive platform to enhance professional development and networking opportunities for teachers will be used to provide distance learning staff development. The project design includes a strong research component focusing on student outcomes, the effects of teacher enhancement and distance learning.